Elucidating the Oxidative Transformation of Antimicrobial Agents with Mn, Fe and Al Oxides

0229172 Huang The fate of antimicrobials in the environment will be investigated. The oxidation of three classes of these materials (those containing phenol, aniline or piperizine) with manganese, iron, and aluminum oxides and with oxide-rich soils will be studied to identify susceptibility to oxidation. Oxidation products, structure-activity relationships, reaction kinetics, mechanisms and pathways will be elucidated.